CSSI: Elements: PhaseForge---Building an Open, Reproducible Infrastructure for Machine-Learning-Assisted CALPHAD Modeling

Advanced technologies, from jet engines to batteries and semiconductors, rely on materials whose performance is set by their internal phase structure. For decades, the CALPHAD method (CALculation of PHAse Diagrams) has been the community standard for quantitative phase modeling in metallurgy, yet these models remain slow, expert-driven, and difficult to scale, and CALPHAD's reach into ceramics, semiconductors, functional oxides, and battery chemistries has been limited by tooling and specialized expertise. CALPHAD models also feed downstream tools predicting mechanical, chemical, thermal, and functional behavior, so improvements propagate through design, simulation, and qualification, shortening decade-long development cycles. The PhaseForge project reframes CALPHAD as an automated, uncertainty-aware, and reproducible open-source platform, extending its reach from metallurgy to a much broader materials space. PhaseForge combines machine learning with thermodynamic theory to help academic researchers, national laboratories, and industry users build high-fidelity databases for advanced manufacturing, energy, aerospace, microelectronics, and defense. These databases feed the simulation, machine-learning, and autonomous experimentation workflows that shorten the path to deployment. Computational tools created through this award are foundational to materials discovery and design, and to their optimization for new manufacturing methods. A computational materials science summer school co-organized by the PI expand access for institutions without commercial tools. PhaseForge strengthens the cyberinfrastructure for materials discovery and trains the next generation of computational materials scientists.

PhaseForge is an open-source cyberinfrastructure platform for autonomous thermodynamic modeling and phase-stability analysis, engineered to feed downstream simulation and discovery workflows. The software integrates five capabilities now available only as isolated research codes: (i) universal and fine-tuned machine-learned interatomic potentials (MLIPs) for high-throughput generation of end-member, solution-phase, and vibrational thermodynamic data; (ii) a differentiable CALPHAD engine whose analytic Jansson derivatives accelerate model calibration by three orders of magnitude over Markov chain Monte Carlo (MCMC) methods; (iii) a Hamiltonian Monte Carlo framework for parameter and predictive uncertainty in phase diagrams; (iv) a Bayesian active-learning module that targets informative regions and directs computational or experimental effort; and (v) an Auto-CALPHAD system coupling symbolic regression with Bayesian optimization for automated model-form discovery. Because thermodynamic databases feed phase-field, precipitation, process, and property-prediction models, PhaseForge outputs standard thermodynamic database (TDB) files that flow directly into PyCalphad, ESPEI, ATAT, Integrated Computational Materials Engineering (ICME) toolchains, and closed-loop Bayesian optimization. All components are released as versioned, containerized, FAIR-aligned software. Validation targets two scientifically important materials families absent from commercial CALPHAD databases, high-entropy MAX phases and shape memory alloys, where accurate phase-stability models are the missing ingredient for reliable mechanical, thermal, and functional-property prediction. Contributions include an integrated differentiable, probabilistic, and data-adaptive CALPHAD environment, uncertainty-aware phase-stability mapping, and an open ecosystem linking thermodynamic modeling to autonomous materials discovery and qualification.

This award by the Office of Advanced Cyberinfrastructure(OAC) is jointly supported by the section of Material Research within the Directorate of Mathematical and Physical Science (MPS).